Portal to the Public: Expanding the National Network

Portal to the Public: Expanding the National Network (PoP: ENN) is implementing around the county the successful NSF-funded Portal to the Public model in which researchers are trained to communicate and interact with the general public at informal science education (ISE) institutions about the research that they are conducting. The project, which follows on a thorough evaluation of the model at eight sites and current implementation at an additional fifteen sites, will incorporate twenty new ISE sites into the growing network, provide training and mentorship to ISE professionals on the use and adaptation of the PoP implementation manual and toolkits, and develop an enhanced network website that will serve as a communication and innovation hub.

The work is responsive to the needs and activities of ISE organizations which continue to expand their missions beyond presenting to the public established science, technology, engineering and math (STEM) and are working to become places where visitors can also experience the process and promise of current research via face-to-face interactions with researchers. The project is expanding both the kind and number of institutions involved around the country and is facilitating their capacity to develop a knowledge base, share experiences and best practices.